Workshop on Knots and Quantum Computing

Abstract

Award: DMS-0745204
Principal Investigator: Mieczyslaw K. Dabkowski,
Jozef H. Przytycki, Viswanath Ramakrishna

The Workshop on Knots and Quantum Computing to be held at the
University of Texas at Dallas in November 2007 is the first of a
planned series of conferences devoted to the relationship between
knot theory and other fields of science. Plenary talks at this
conference are expected to survey the state of existing
connections between knots and quantum computation, exemplified by
Khovanov homology, which is presently understood as a
generalization of the Jones polynomial or a similar invariant of
a knot to a novel chain complex whose Euler characteristic
recovers the original polynomial invariant.

This conference is intended to provide a place for knot theorists
and researchers in quantum computing to communicate and to
develop new connections between their subjects. PhD students and
recent PhDs are particularly encouraged to attend and to apply
for travel support from this award.